Student Travel Grant for Doctoral Symposium at ICSR-11

This grant supports student travel to a Doctoral Symposium taking place in conjunction with the International Conference on Software Reuse. The funds will give participants an opportunity to present their current work and get constructive feedback from a panel of faculty volunteers. The forum helps form a community for the next generation of researchers/educators and gives a forum for improving their research results with faculty mentorship beyond their own institution.

Sol J. Greenspan, Ph.D.
Program Director, CISE/CCF